10th Symposium on Thermophysical Properties; Gaithersburg, MD; June 20-23, 1988

The 10th Symposium on Thermophysical Properties is part of a well- established series of symposia which are regarded as the most effective international forum for workers in this field. Important current issues in thermophysical property research are: (1) properties of composite materials; (2) properties of ceramics; (3) thermophysical properties of supercritical fluid mixtures; (4) thermophysical properties of coal-derived liquids; (5) aqueous systems; (6) new experimental techniques; (7) phase-equilibrium phenomena; (8) high temperature melts; and (9) non-equilibrium measurements. These areas will be emphasized in the Symposium.